Marine Geological Sample Collections: Scripps Institution of Oceanography

9415500 Riedel Funds are provided for the continued operation of the deep- sea core and dredge samples' repository at Scripps Institution of Oceanography for three years. These samples are vital to our understanding of the past and present oceans, climates and events on the continent. Newly acquired cores will be integrated into the curatorial system and the old cores and dredges will be continued to be curated and distributed to scientists requesting samples. Data of cores will be bank with the National Geophysical Data Center where computer searches will facilitate sample selection by investigators. ***